Acquisition of Instrumentation for Characterization of Optical Materials and Devices

9512504 Maldonado This proposal requests advanced instrumentation for characterizing new optical materials (nonlinear biaxial crystals organic and inorganic ) and wave guide devices. The instrumentation (i.e. laser systems, ellipsometer, spectrum analyzer, etc..) would be used to verify experimentally the theoretical' studies and predictions of the Electro-Optics Group at the University of Texas in Austin. In particular, the propagation constants of hybrid modes in planar and channel biaxial waveguides are to examined as well as waveguide devices, such as guided-model resonance filters. ***